Isoperimetric Problems and Singular Geometry

Abstract

Award: DMS-9876471
Principal Investigator: Frank Morgan

The principal investigator will study various isoperimetric
problems in Euclidean space and more general Riemannian
manifolds. He will work on Aubin's conjecture, that the Euclidean
isoperimetric inequality continues to hold in a simply connected
space of nonpositive curvature, at least for small volumes. More
general isoperimetric problems in Euclidean space involve
clusters of several given volumes, crystalline energies dependent
on direction, and immiscible fluids, for which interface cost
depends on the fluids separated. He will work on the Double
Bubble Conjecture for general volumes and in higher dimensions. A
distinguishing feature of many of these problems is the
appearance of singularities.

Isoperimetric problems consider the cost of enclosing volume:
soap bubbles enclosing volumes of air, crystalline arrangements
of molecules in materials, the interplay between area and volume
in the curvature of the universe. Singularities often play a
critical role: soap films meeting in threes, structural defects
in materials, black holes in the universe. Fundamental questions
remain open. The Double Bubble Conjecture, for example, says that
the familiar double soap bubble is the least-area way to enclose
and separate two given volumes of air. The recent computer proof
for the case of equal volumes by Hass and Schlafly can be traced
back to work by Morgan's NSF undergraduate research Geometry
Group, which will continue to work on the general problem. Morgan
gives some forty talks a year. To popular audiences he likes to
explain that the way to understand the geometry of the universe
is first to understand the geometry of soap bubbles. He has a
Math Chat TV show and column, both available at the Mathematical
Association of America website at http://www.maa.org, and is
currently making final preparations for the publication of a
popular Math Chat Book.